World Ocean Circulation: Indian Ocean

0081031 / Reid

This is a continuing analysis of the mean circulation of the Indian
Ocean using modern, WOCE-era observations. The approach is one of
classical hydrographic and water mass analysis, computing relative
geostrophic velocities and then inferring absolute reference velocities
from tracer distributions. Once the Indian Ocean circulation has been
mapped, it will be synthesized with the circulations already calculated
for the Atlantic and the Pacific.